Dissertation Research: The effects of Climate and Vegetation On Belowground CO2 Fluxes in Arctic Ecosystems

ABSTRACT The PIs propose to examine the climatic effects of a warming trend on the belowground component of plant respiration. The results of this study will compliment the results of a large study on the Alaskan North Slope that is examining the effects of global warming on the flux of carbon dioxide from plants and soil. The assessment of the belowground component of the carbon dioxide flux will allow researchers to differentiate between the carbon dioxide flux due to respiration of living plants from that resulting from decay of organic matter incorporated into the frozen soil. This study will be an important component of ongoing studies relating the tundra ecosystem to climate in the Arctic.